Long-Term File System Performance

NSF Proposal # 9972244
Long-Term File System Performance
Thomas Anderson

In recent years, the disk I/O bottleneck has become widely
recognized -- as CPU performance improves much faster than
disk latency, an increasing fraction of overall system
performance is spent in the file system. Worse, file system
performance often degrades over time; as files are created,
deleted, and modified, the disk can become fragmented, limiting
system performance. Unfortunately, existing file system
benchmarks are too short to be of practical use in studying
this effect. This research focuses on understanding the long
term behavior of file systems by collecting and analyzing detailed
year-long traces of file system use. The work will use these
traces to evaluate several proposed strategies for dynamically
reorganizing the disk with the goal of improving the equilibrium
performance of file systems.